Small Aerial Bathymetric/Topographic LiDAR System for Tropical Marine and Terrestrial Research

A hexacopter drone with a scanning LiDAR (Light Detection and Ranging) instrument is being used by the Coral Reef Research Foundation (https://coralreefpalau.org) to survey and map marine and terrestrial habitats in the Republic of Palau (Micronesia). The system measures heights of terrestrial vegetation, island ground level (land) and water depth along its flight path. The timing of laser pulse return times, while the drone flies an overlapping survey pattern, enable complete maps of land elevation (digital elevation models) and water depth (bathymetric maps) to be prepared. These are important for studies on coral reefs and other shallow marine habitats, terrestrial forests, grasslands and mangroves. They form the quantitative basis of estimating shoreline inundation from storms or rising sea levels, stability of islands, risks of tsunamis in given areas, coastal planning, forest sustainability and understanding human environmental impact in Palau. Survey results will be shared with government agencies and the public. Previously there has been no local LiDAR drone capability in Palau, although many local agencies, organizations and individuals have needed data and surveys. The system/data will also be an excellent teaching tool to supplement ongoing programs in local STEM education.

The high-resolution data, otherwise unobtainable, are impactful across a wide variety of field disciplines related to tropical marine/island environments, including bathymetric/topographic and habitat mapping, quantitative imaging for coral reefs, stability of islands, marine megafauna habitats, terrestrial ecosystems and human-influenced habitats. These are relevant to many aspects of conservation, protected area management, coastal oceanography, and dynamic elements of climate change/variation. The data sets are used to prepare mapping to provide a quantitative basis for inundation modeling, tsunami risk prediction, protected area surveys for National and State governments, coastal planning, forest sustainability and understanding the environmental impact of human history in Palau. The system is being incorporated into existing educational programs (bathymetric mapping, robotics, "Back to Nature" scientific field trips) to have a positive influence on local students. There previously was no research/commercial drone/aircraft based LiDAR capability in Palau, hence the requested equipment represents a singular capability for Palau with many local users (agencies and organizations) needing data and surveys